Ten Week Summer Research for Five College Teachers with Emphasis in Bioanalytical Chemistry

This project is in the general area of analytical chemistry, broadly defined. During a ten-week period between 1 June 1988 and 31 August 1988, five faculty members from colleges that do not offer the PhD degree in chemistry will carry out collaborative research on various aspects of bioanalytical chemistry with ten faculty members from the Center for Bioanalytical Research (CBAR) at the University of Kansas (KU). Research participants will be selected from among those who respond to KU's announcement of the summer research program; this announcement has been targeted at ten midwestern states in the vicinity of Kansas. This activity is analogous to the support of faculty from undergraduate institutions through NSF Research Opportunity Awards (ROAs). In this project, however, participating faculty from the undergraduate institutions will not have necessarily prearranged their summer research activities with particular CBAR faculty members. Rather, they will establish their collaborative arrangements after they have had an opportunity to consider fully all of the research programs of the host institution participating faculty. In addition to the research thrust of this program, CBAR faculty will present a series of tutorials covering current research tools and topics that constitute modern chemical analysis, with particular emphasis on research opportunities in bioanalytical chemistry that could be implemented subsequently at the home institutions of the participating undergraduate faculty members. Also, representatives from Federal and private sector funding agencies that have strong commitments to the support of quality research programs in undergraduate institutions will address the participants and describe opportunities whereby such support can be competitively sought. This three-year project can be expected to lead to the attraction of increased numbers of students into careers in analytical chemistry by beginning to establish a network of vital, academic analytical chemists at undergraduate institutions in the midwest.